A Unique Approach for Interleaving Optoelectronic Devices onto CMOS Circuitry

This proposal describes a one-year activity in which the PI will conduct investigation and develop a unique technique for bonding a 4x8 smart pixel array consisted of GaAs vertical cavity surface-emitting lasers (VCSELs) and p-i-n photodetectors onto a Si-CMOS circuitry in an interleaving manner. Such photonic integrated smart pixels will perform logic functions for applications in parallel imaging processing, database comparators, optical computing, shared memory proccessor interconnect, and many more.